Metalloporphyrin-Based Magnetic Materials

This award is made by the Advanced Materials Program in the Chemistry Division and the Solid State Chemistry Program in the Division of Materials Research to the University of Utah in support of the research of Joel S. Miller. The research will explore structure- function relationships in metalloporphyrin/tetracyanoethylene(TCNE)-based magnetic materials with the goal of discovering new organic based magnets with high critical temperatures, magnetic saturation moments and ambient stability. Research thrusts which will be emphasized are the role of spins on the periphery of the porphyrin ligand, effect of covalent bonding and supramolecular hydrogen bonding, synthesis of new magnets based on anion-radical acceptors other than TCNE, synthesis of porphyrin complexes with other high spin metal ions, photomagnetic effects in manganese porphyrin/TCNE complexes, and the pressure dependence of ferromagnetism on pressure. Collaborative physical measurements and computational studies will supplement the synthetic aspects of the research. Organic based magnets are tractable and offer the synthetic diversity necessary to design a variety of magnetic materials with predictable and controllable properties. This research will help define structure-performance relationships for a new generation of magnets with potential applications in electronic and photonic devices.